CAREER: Machine Learning Control of Underactuated Mechanical Systems

The nonlinear underactuated systems represent an important and general
class of problems in robotics which have proven mostly intractable for
analytical and numerical control design paradigms. Machine learning
approaches to underactuated control, which employ approximations to
make numerical optimal control techniques tractable, will have broad
applications from walking robots to the control of aerial vehicles and
fluid systems. Here we pursue a careful analysis of the algorithms
applied to linear time-invariant (LTI) systems. This will contribute
fundamental results on the convergence rate of different learning
algorithms, and the design of robot mechanisms and input-output
"features" which maximize the rate of convergence. Theoretical
results are coupled with experiments on a strongly nonlinear control
problem - a two-link bipedal robot walking over rough terrain.
Acquiring a near optimal feedback policy for this robot would produce
a result that is surprising and compelling (because a simple robot
will be traversing more complicated terrain than has been demonstrated
by any humanoid), but also clear and revealing (because the simplicity
of the robot exposes the fundamental problems in walking and nothing
more). Both theory and experiment allow us to perform a careful
comparison between machine learning control and more mature control
approaches from modern control.